Pragmatic Issues in Semantics-Based Transaction Processing

9314376 Ramamritham Although powerful, the transaction model and correctness criterion adopted in traditional database systems is found lacking in functionality and performance when used for applications that involve reactive, long-level and collaborative activities. It has been recognized that by utilizing the semantics of complex objects, transaction models, and correctness requirements during management and processing of such activities it is possible to achieve better performance and functionality. This leads to the notion of semantics-based transaction processing. Our prior work with the ACTA framework has helped us understand and analyze the basic concepts underlying extended transactions and relaxed correctness criteria. Building upon this foundation we plan to investigate the pragmatic considerations related to semantics based transaction processing: The lack of comparative performance evaluation of extended transaction models correctness criteria prompts us to conduct and empirical evaluation of their performance. The need to provide programming language support for designing extended transaction models and for expressing a desired correctness criterion motivates us to develop flexible language primitives that allow a designer to express different transaction models and correctness criteria. Even where extensions to the traditional approach are required, it may still be feasible to use some of the standard transaction concepts and implementation mechanisms to develop the underlying system support. So we plan to investigate synthesis-base implementation approaches that can benefit from established mechanisms and concepts. The need for extended transactions and relaxed correctness criteria emerges from the demands of applications, such as CAD/CAM, software development environments, object-oriented databases, and distributed operating systems. By focusing on the practical issues in providing transaction support for such application work pr oposed here will produce results that will those information-intensive application areas.